Undergraduate Research in Optics (Physics)

This action is for the continuation of a program that has been outstanding in recruiting and involving women and minority students from the local area in significant and timely research projects.